NSF Center for Biocatalysis and Bioprocessing of Macromolecules - Operational Grant

EEC-0001879
Gross

The goal of the Industry/University Cooperative Research Center for Biocatalysis and Bioprocessing of Macromolecules at the Polytechnic University of New York is to conduct research on a wide range of issues applicable to the use of biocatalytic methods in polymer synthesis and materials processing. The research program includes three themes: (1) In-vitro enzyme-catalyzed polymer synthesis and modification; (2) Biocatalytic degradation of polymers; and (3) Biosynthesis of novel polysaccharide copolymers. The Industrial Advisory Board (IAB) consisting of representatives from nine participating companies review the progress of research, and provides guidance to the Center's management and technology transfer activities.